Studies of the Primary Reactions of Bacterial Photosynthesis

Dr. Woodbury proposes to investigate the mechanism of initial electron transfer in bacterial photosynthetic reaction centers. Particular interests lie in furthering the understanding of the role that the protein matrix plays in modulating the thermodynamic and kinetic parameters of photosynthetic electron transfer. To this end, Dr. Woodbury will utilize a combination of directed mutagenesis to alter the amino acids near the reaction center cofactors and transient spectroscopy to assay the kinetics and thermodynamics of electron transfer between redox active cofactors as well as to identify the mechanistically important intermediates involved in this reaction. Several specific projects are proposed. One involves the use of site-directed mutagenesis to investigate the effect of hydrogen bonding on the redox properties of the initial electron donor and then to determine the effect of changing this important thermodynamic parameter on the electron transfer mechanism. Dr. Woodbury will perform most of the fast spectroscopy in this project; the mutants were designed and constructed by Allen and Williams. Another project involves comparing the electron transfer mechanisms of reaction centers from different organisms by exchanging regions of DNA sequence between the reaction center genes of these organisms. At the level of the protein backbone, the reaction center has a near two fold-rotational symmetry. However, the amino acids present on the two sides are largely different. The result is that electron transfer is very asymmetric, occurring almost exclusively down one of the two possible pathways, even though two pathways exist with chemically identical cofactors. This will be studied by exchanging regions between the two sides and performing spectroscopic analysis of the direction, kinetics and intermediate states involved in initial electron transfer. %%% There are two broader goals of the project. First, an understanding of solar energy conversion during photosynthesis is itself a major interest of this laboratory. Essentially all of the energy used by living organisms ultimately comes from this source, and a mechanistic understanding of this process could be very useful in the development of molecular devices that require a specific energy input (which is what a reaction center really is). Second, the reaction center provides an excellent laboratory for the study of cofactor-protein interactions in general. There are few protein-chromophore systems where reaction mechanism can be probed in such detail on time scales as short as femtoseconds (which encompasses the time scale of molecular motion). Here again, the information obtained from these studies can be used in the rational design of many types of molecular devices and in the understanding of a very wide range of protein-mediated chemical reactions.